U.S.-Korea Cooperative Research on Multipole Matrix Element Zeroes in Resonances in Independent Particle Approximation

This proposal requests funds to permit Dr. James E. Bayfield and Dr. Richard H. Pratt, Department of Physics and Astronomy, University of Pittsburgh, to pursue with Dr. Sung Dahm Oh, Department of Physics, Sookmyung Women's University, Seoul, Korea, for a period of 24 months, a program of cooperative theoretical research on multipole matrix element zeroes in resonances in independent particle approximation. Specifically, the project will deal with theoretical investigations of "Cooper Minima" and shape resonances, two main features which distinguish radiation transitions in a screened atom from the simple point Coulomb hydrogenic case. This project involves cooperative research of two groups of investigators who have complementary skills and facilities. The key collaborators are highly respected scientists who, for a number of years, have cooperated in the field of the research. Their cooperation has been highly successful and has resulted in several joint publications in refereed journals. The proposed study of multipole matrix element zeroes and resonances will shed light on the deviations from simple point Coulomb behavior in the case of electronic screening. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit.